The Origins and Genesis of the Mathematical-Physics Community

A perhaps over-simplified view of a "scientific revolution" would have it that a great scientist develops a new theory to resolve a perceived problem in science. Once the theory is developed, it inexorably overcomes other, opposing theories to become the accepted "paradigm" of that scientific discipline. This view has typically been applied to the "Newtonian" revolution of the 17th and 18th centuries. In his Principia, Newton resolved the problem of gravitation by unifying terrestrial gravity with the force controlling celestial motions of the planets. 18th century science is then simply the history the advance of Newtonian science as it rolled over the remains of the French Cartesian theory. As simplistic as this theory might seem, stated in its baldest terms, it has been the accepted historiography of the rise of modern mathematical physics centering in France in the 18th century. One should have been suspicious of this too pat a theory, yet, until the work of John Greenberg, no one challenged it. Under an earlier NSF grant, Dr. Greenberg began the work of dismantling this received view. With this grant, he will complete that work and replace it with a new, more sophisticated and realistic understanding of the rise of modern mathematical physics. His study points up the critical function of international scientific communication in advancing science, the influence of Leibniz, the contributions of mathematical-physical traditions (i.e. the work of the Bernoulli's) dealing with the mechanics of rigid and elastic bodies and fluids completely distinct from the Newtonian tradition, and the strikingly mathematical achievements of forgotten French mathematicians of the 1730's and 40's. In other words, the completion of the "Newtonian" Revolution in 18th century mathematical physics was not so much the inexorable conquest of Newtonian physics as much as the synthesis of Newtonianism with continental physics and mathematics. This synthesis calls into question the tradition of "normal" science following a revolution and provides new grounds for work by historians, philosophers, and social scientists into the processes of scientific development.